High-Performance, Adaptive Routing in Multiprocessor Networks

Chien The selection of good routing algorithms in multicomputer networks is necessary to prevent deadlock, avoid hot spots, and maximize performance. This project establishes a framework for selecting routing algorithms, which consists of four parts: 1. selection of deadlock-free algorithms with varying degrees of adaptiveness; 2. a set of analytic models of router speeds based on switch and buffer delay measurements; 3. an empirical study of network traffic patterns to determine the need for adaptiveness in routing; and 4. a set of techniques for extending routers to meet requirements such as fault tolerance and in-order message delivery.